Quantum Corrections to Classical Approximations

DMS-0200235
Project title: Quantum corrections to classical approximations

PI: Laszlo Erdos, Georgia Institute of Technology

Abstract:

The proposal contains three related projects that investigate
residual quantum effects in classical approximations
of complex quantum problems. The first project considers
the correction due to the self-generated
magnetic field in the Thomas-Fermi theory of large atoms.
The optimal magnetic field obtained from a variational
principle is spatially inhomogeneous. The second project aims at
deriving nonlinear self-consistent evolution equations
from the quantum dynamics of many particles
interacting via weakly coupled Coulomb force. The quantum statistics of the
particles determine the scaling and the limiting
classical equation (Hartree or Vlasov). The last project
studies the long time dynamics of noninteracting
electrons in a random environment in the diffusive regime.
On the shorter kinetic time scale the Boltzmann
equation has been established earlier.
The goal is to determine the quantum corrections to the
classical diffusivity obtained from the Boltzmann equation
and verify some predictions of the celebrated scaling theory
of conductance.

The physics of charged particles governs all electric phenomena.
From theoretical point of view, these particles can be accurately described
using many-body quantum mechanics. In practice, however,
the fundamental equation of quantum
physics, the Schr\"odinger equation, is too complicated. Typical electronic
devices contain a huge number of electrons and it is impossible to
describe their precise microscopic behavior
even with the current computer technology.
The Schr\"odinger equation is usually replaced with
much simpler equations that are computationally more feasible.
These equations do not contain all information about the complex
electronic system, but they may describe certain quantities
of interest with a sufficient precision. The proposal
studies three complex quantum systems:
(i) a large atom in a self-generated magnetic field;
(ii) many charged particles with a weak interaction;
(iii) a single electron in an impure medium.
The goal is to find the correct approximating equations
and to justify rigorously that
they are consistent with the Schr\"odinger theory in certain limits.
Heuristically, some of these equations can be guessed based upon
classical mechanics. Quantum mechanics, however, may modify
the classical picture. The proposed work identifies the quantum
correction effects in the classical description of these three basic models.